New Strategies for Teaching Introductory Oceanography: A Collaborative and Interactive Approach

DGE-0001789

I am requesting the funds from this starter research grant to first complete the implementation of these course at all three institutions (FAMU, FSU, and TCC). Second, I want to evaluate and compare the effectiveness of this teaching style at each of these settings. Course assessment strategies will include self-evaluations. When selecting the evaluation (by mentors and colleagues), and student evaluations. When selecting the appropriate assessment tools for the student and peer evaluations I will rely heavily upon the advice of my colleagues in science education as well as my other PFSMETE Fellows that have expertise in this area.